REU SITE: RESEARCH EXPERIENCES FOR UNDERGRADUATES IN PHYSICS AND ASTRONOMY

This award supports the renewal of the Stony Brook Research Experience for Undergraduates in Physics program which brings undergraduate students to the Stony Brook campus each summer for participation in an eight-week program of forefront research in the laboratories of Stony Brook physics and astronomy faculty members. The program offers research opportunities in the areas of astronomy and planetary sciences, atmospheric physics, high-energy particle physics, instructional laboratory instrumentation, lasers and optics, nuclear physics and solid-state/condensed matter physics. Most projects are experimental but a few are theoretical. The immediate aim of the program is to provide training in, encourage interest in, and appreciation of, scientific research in physics and to facilitate career planning by the actual doing of research in a collegial setting, by site visits to research laboratories at Stony Brook and Brookhaven National Laboratory, by weekly seminars on current topics in physics and astronomy, and finally by presentations of student research results in a formal symposium and a written report at the conclusion of the program. Outstanding projects are submitted for presentation at other student research symposia.